REU: Femtosecond Dynamics of Novel Optoelectronic Materials

The object of this research is to conduct femtosecond measurements in bulk InGaP to gain experience of subpicosecond measurement techniques to obtain preliminary results for the preparation of a proposal to study the dynamics of carriers in InGaP based multiple quantum wells at atmospheric and high pressure. A model will be developed to evaluate the effect of pressure on the relaxation of carriers in the InGaP based multiple quantum wells. The study of the subpicosecond dynamics of semiconductors at high pressure is an area that has so far not been explored and likely to contribute important information on these materials. A detailed proposal will be submitted to NSF Research Initiation Award Program at the completion of the proposed preliminary studies.